DISSERTATION RESEARCH: Systematics and Color Mimicry Evolution of Cyanide-producing Millipedes of Appalachia (Polydesmida, Xystodesmidae, Apheloriini)

A grant has been awarded to Dr. Jason E. Bond and Mr. Paul E.
Marek of East Carolina University to enhance, improve, and support the
co-PI's dissertation project - a taxonomic and evolutionary study of the
millipede tribe Apheloriini (Diplopoda: Polydesmida) distributed
throughout the Appalachian Mountains. Aposematism (warning coloration)
and color mimicry are among the most striking features of the
Appalachian millipede genus Brachoria. Individuals in this genus
display strong color and pattern similarity with several other closely
related sympatric genera. These millipedes provide an excellent system for studying
mimicry evolution. However, until now investigating mimicry and other
interesting evolutionary questions in this millipede group has been
hindered by the absence of a sound taxonomic structure and a robust
phylogeny. This project will provide: (1) a phylogeny-based
classification system of Apheloriini; (2) a systematic revision of the apheloriine
genus Brachoria that will include a reconstruction of evolutionary relationships,
new species descriptions and redescriptions of existing taxa, documentation of
geographical distributions and natural histories, and production of
easy-to-use keys for identification; and (3) a hypothesis-driven test of
alternative mimicry scenarios in Brachoria.